An Aerosal Process for Fabrication of Monosized GaAs QuantumCluster Dots

A quantum cluster dot is a compact structure in the 5 to 20 um size range where small scale in three dimensions yields discrete electronic states. This research is an interdisplinary, experimental program for the formation and characterization of monodisperse gallium arsenide (G A ) quantum cluster dots. The clusters will be produced in an aerosol reactor by the vapor phase reaction of an organometallic gallium contains vapor with arsine. Particle size and cluster quality will be monitored by in-situ laser induced luminescence spectra. Clusters from the aerosol reactor will be classified into very narrow size ranges required for applications by an electrostatic classifier. Captured particles will be analyzed as to particle morphology, interval defect structure, and carbon contamination using electron microscopy (TEM and STEM), energy dispersive X-ray analysis (EDAX), and electron energy loss spectroscopy (EELS). Exciting new electronic and optical components would result from the incorporation of large numbers of identical quantum cluster dots into solid state structures. Possible applications include semiconductor lasers several orders of magnitude better than conventional diode lasers and new electroluminescent display technology with convenient adjustment of color. However, to achieve such results, the clusters must be produced to very strict size tolerances, typically with size variations not larger than 0.5 um. Otherwise a device averaging the electronic states of many clusters varying in size would lose the distinctness of states inherent in any individual quantum cluster dot.